Sustained Economic Growth of the Oglala Lakota Nation through Development of the Technological Infrastructure

Oglala Lakota College (OLC) is a tribally controlled and community governed four-year
academic institution with 1300 students located in ten college centers across the
Pine Ridge Reservation in South Dakota (SD). The student base is approximately 90%
American Indian. As one of six NSF-designated Model Institutions for Excellence
(MIE), OLC has developed the infrastructure to offer Science, Engineering, Math and
Technology (SMET) degrees and increase the number of Native Americans continuing
on to graduate school. We currently have general collaboration agreements with the
SD School of Mines & Technology (SDSM&T) and SD State University. Since 1995, the
MIE Program at OLC has developed five new accredited degrees in the SMET areas.

Presently the Oglala Lakota Nation is forced to outsource all analytical work to off-
reservation labs due to the lack of qualified facilities and expertise. Our long-term
goal is to train a pool of highly skilled scientists and lab technicians who will serve
their communities as self-employed entrepreneurs or hired employees. Also, one of
the major shortcomings of our SMET programs is the lack of lab facilities with modern
analytical equipment. This creates a disadvantage for our students at every level of
their career.

We propose a multifaceted approach to develop the technological infrastructure of our
institution and the reservation as a whole. We will build a research center housing
several federal and state certified labs that will provide us with the capacity to conduct
research and routine analytical work in the areas of chemistry, environmental science, and
biology. Collaboration agreements with three faculty members at SDSM&T and Black Hills
State University in these areas are procured for this proposal. We will actively seek
partnerships with tribal agencies to provide research and analytic services. This insures
that a significant portion of the funding allocated by tribal agencies would be re-infused
into the reservation economy. This would also sustain the project beyond NSF funding.

Our faculty and students will be trained on the equipment by the collaborators and
through industrial short courses, workshops and seminars. Both collaborators and
faculty will initiate research projects involving our students utilizing the new equipment.
We will strengthen our curriculum by developing new analytical lab classes and by
enhancing existing sciencecourses. Finally, students and faculty will reach out to
reservation communities to help them address their concerns about economic
development and the environment. Students and faculty will also teach SMET
classes at reservation schools and will open up the labs for teachers and students
to stimulate scientific knowledge and curiosity .